Engineering Research Equipment Grant: Algorithm Development and Performance Evaluation of Hypercube Multiprocessors

Researchers at the University of Illinois-Urbana will purchase a hypercube multiprocessor. The equipment will be used for research in computer science, including the following three research projects: (1) Design and implementation of sophisticated computer-aided design tools for VLSI that can run efficiently on the Hypercube multiprocessor. Specifically, tools will be developed for cell placement, wire routing, timing, logic and fault simulation, circuit extraction from mask layouts, and automatic test generation. (2) Intelligent heuristic searches for artificial intelligence applications. Strategies for parallel processing of heuristic searches on the Hypercube will be developed. Also to be considered will be program restructuring for parallel evaluation of logic programs. (3) Performance evaluation of the Hypercube system.